Coordinated Travel Support for US Volcanology Graduate Students to IAVCEI General Assembly, Bali July 2000

Rose
EAR-0073281

This award will support the costs of travel for 10 US graduate students currently doing research on volcanological problems to ensure their attendance at the IAVCEI (International Association of Volcanology and Chemistry of the Earth's Interior) General Assembly in Bali, Indonesia, July 2000. The meeting has a theme of volcanic hazard mitigation, and the attendance of US volcanology students will help stimulate continued international collaborative research on volcanology, and to develop more interactions among US volcanology programs. Selection of the students will be done from applications by an AGU committee. Students selected must be enrolled in a US university and doing active research in volcanology as evidenced by a submitted abstract to the IAVCEI meeting in Bali. As part of the experience, students will also participate in field trips to at least two other active volcanoes in the Philippines and Hawaii.